The Interaction Between Geometry and Analysis in Geometric Function Theory and in the Theory of Discrete Groups

ABSTRACT:

The specific work described in this proposal consists of three
projects. Part I is a joint project with Juha Heinonen: A
celebrated result by Hayman and Wu says that the level sets of any
Riemann mapping can not be arbitrarily long. The PI and Heinonen
are analyzing the exact conditions under which this result extends
to the more general case of covering maps from the unit disk onto
multiply connected domains. To this end, we explore the uniform
thickness of boundaries of domains in the complex plane, a
condition that is measurably stronger than uniform perfectness.
Part II is a project that consists of generalizing Jorgensen's
inequality to discrete quasiconformal groups acting on the
n-dimensional unit sphere. Such a generalized Jorgensen inequality
would make it possible to extend fundamental aspects of the rich
theory known in the Kleinian case to the setting of quasiconformal
groups. A natural question (with Gaven Martin) for example is:
Under what assumptions is a discrete quasiconformal group
isomorphic to a Kleinian group? In part III, the PI is working on
questions concerning the dynamical action of a discrete
quasiconformal group acting on the n-dimensional unit ball. A
portion of this project is joint with Edward Taylor. We are
exploring local properties of the Hausdorff dimension of limit
sets of discrete quasiconformal groups. One of our questions is,
for example, to find the relation between the local Hausdorff
dimension of the limit set and the local Poincare exponent of the
group. Another question involves limit sets of infinite index
subgroups of discrete groups.

The theory of discrete groups of Mobius transformations is
especially beautiful as it intertwines geometry, analysis, and
topology. This proposal is part of an ongoing program to study the
interaction of geometry and analysis in the setting of discrete
quasiconformal groups and more generally, in geometric function
theory. The study of Kleinian groups (discrete groups of Mobius
transformations) goes back to the 18th century, when it was
developed by such mathematicians as Gauss, Lobachevsky, Klein, and
Poincare. One of our goals is to analyze the thickness of the set
of chaotic behavior of a Kleinian group (and more general sets)
and to investigate under what assumptions such sets are uniformly
thick. Another goal is to explore how certain analytically and
geometrically defined properties change as one enlarges the class
of Kleinian groups. The enlarged class of groups that we are
mainly interested in is the class of discrete quasiconformal
groups. One objective is to analyze how one can quantify the
concept of discreteness in the class of quasiconformal groups.
Another goal is to relate the conformal action of a quasiconformal
group on the boundary of hyperbolic space to its action on
hyperbolic space. Much of our work is inspired by analogous
conjectures and developments in the field of hyperbolic geometry.